Multivariate Analysis of Borehole Discontinuity Data

***
9978666
Maerz
The characterization of the structure of rock masses is an important
consideration in understanding how rock masses behave. With a few
exceptions, most of the rock masses that engineers deal with are influenced
to some extent or another by discontinuities. While we understand much
about the mechanical properties of intact solid rock, our understanding of
discontinuous rock is significantly less well developed.

Conventional wisdom indicates that for adequate characterization, data must
be collected using surface mapping. Tools and models are designed for this
approach. As a result drilling (borehole) data, which as the mainstay of
geologic exploration is omnipresent, is typically under-utilized. Oriented
borehole data however has the advantage of being easier and more cost
effective to obtain. Drilling can provide access to rock at depth and at
the precise locations where the data is needed. Drilling data is an
integral and routine part of early site investigations, so it is almost
always available. Analysis is however not routine, largely because of the
lack of useful analysis tools which can make use of the measured data and
incorporate it into a model with practical value.

A new analysis tool being developed, incorporates the various attributes of
the discontinuities in a multivariate analysis, and uses multi-dimensional
clustering to identify joint sets and geological/ geomechanical domains
(statistically homogeneous regions with respect to geological structure).
The method will make use of both statistical analysis and three-dimensional
visualization tools, in an integrated and automated package of computer
algorithms.
***